Acquisition of an X-Ray Photoelectron Spectrometer

This award from the Academic Research Infrastructure Program will help the Department of Chemistry at the University of Oregon acquire an X-ray photoelectric spectrometer (LXPS). The research activity to be supported includes: the areas of molecular self-assembly, polymer modification and/or degradation, semiconductor photocorrosion, chemical sensing, fabrication of non-linear optical devices, and the preparation and characterization of new solid state nanostructures and materials. The X-ray photoelectron (XPS) spectrometer is used for chemical analysis. It irradiates a sample with a beam of monochromatic X-rays and the energies of the resulting photoelectrons are measured and are related to specific elements